Theoretical Studies of Reactive Molecular Processes

Yngve Ohrn and Erik Deumens are supported by a grant from the Theoretical and Computational Chemistry Program to develop electron nuclear dynamics, a general approach to find approximate solutions to the time-dependent Schrodinger equation. By solving this equation in a non-Born-Oppenheimer way, that is, by placing the nuclei and the electrons on an equal footing, their method avoids the extensive computation of potential energy surface points and nonadiabatic coupling terms required by traditional approaches. The trade-off is an increase in the number of particles to be treated, but due to advances in computational power, this method is economically competitive. Applications include hydrogen abstraction reactions and dissociative recombinations of polyatomic molecular cations. Elementary chemical reations are dynamical events involving the participating electrons and atomic nuclei. Such dynamics are described at the most fundamental level by the time-dependent Schrodinger equation. A general approach to solving this equation will yield reaction rates for elementary chemical reactions which are difficult to obtain experimentally.